Science Career Paths for Minority Students

The Science Career Paths for Minority Students program is a cooperative effort administered by the University of California, Riverside Graduate Division. It is designed to attract up to 25 students over a five year period from 15 different academic disciplines in the sciences and social sciences. It allows them to choose from over 64 ongoing research projects and provides encouragement to pursue research or university careers. Support is provided from the summer of their junior year through three years of graduate school with the promise of continued support until the completion of a Ph.D. at UCR. Two summer programs following a student's junior and senior years are intensive research mentorships and preparation for graduate school. Senior year research traineeships allow further experience and mentoring from faculty and graduate students. Upon entry into graduate school at UCR, the student receives three years of fellowship support, including fees and a research/travel allowance.